NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of plant developmental biology and is entitled "The role of the HASTY Gene in Shoot Maturation." The regulation of developmental phase change in Arabidopsis is being studied using a genetic mutant, HASTY, which accelerates the transformation from the juvenile to the adult vegetative phase. Using several methods, the transcription and translation patterns of HASTY in various plant tissues will be investigated in order to gain insight into its function.